SHF: Small: Statistical Analysis of Software

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

The project investigates statistical software analysis, which infers
relationships among program components by using statistical properties
derived from multiple program executions.

To motivate statistical techniques, it is useful to draw analogies to
static analysis methods. Static analysis is about inferring
dependencies between program components: If a value is changed in one
component, how does that affect a value in a different component?
Static analysis tends to work best for properties that are local,
meaning the pieces of the program we are trying to relate are not
separated by a great deal of other computation. The statistical analog
of dependencies is correlation. Instead of proving definitively via
static reasoning the presence or absence of dependencies, we can
observe at run-time that some properties of two components have high
or low correlation. Importantly, correlation is not affected by
syntactic or even dynamic locality: if two components have a
correlation, regardless of how much time or computation passes between
the execution of one component and the execution of the other, this
correlation can be detected if the appropriate statistical question is
asked.

The initial focus is on using cross-correlation, which which computes
the maximum correlation between two sequences of observations, to
formalize statistical correlation between software components that
have a direction in time. This idea gives rise to a natural graph that
captures the strength and direction of statistical influence one
component has upon another; these graphs are analogous to traditional
dependency graphs, but have unique and useful properties.